Domain Specific Parallel Adaptive Scientific Computation

This project investigates domain specific parallel computation for the adaptive solution of partial differential equations. The decomposition of parallel programs is achieved with the aid of a family of annotation languages that enable the user to annotate programs written in various programming languages. The synthesis of parallel computation relies on the description of an overall computation done in a simple configuration language in terms of interactions of programs and their fragments created by annotations. The decomposition by annotations and synthesis through configuration simplify the process of (1) determining the grain size for efficient parallel processing, (2) data distribution, and (3) run time optimization.